Roanoke River Valley Consortium Teacher Enhancement Project (R2VCTEP)

9554607 Jones The Roanoke River Valley Consortium consists of five improverished school systems with student populations that are predominantly People of Color: Bertie, 78%; Hertford 73%; Northampton, 79%; Warren, 77%; Wedon City, 98%. The vision is to provide science, mathematics and technology professional development for K-8 teachers. This will enable teachers to implement changes designed to increase opportunities for student achievement. This program will enable teachers to integrate exemplary curriculum materials into North Carolina's curriculum in science, mathematics, and technology. The planning grant will allow the school community to become familiar with such materials as Science and Technology for Children, Middle School Science and Technology, Windows on Mathematics, Windows on Science, Jasper Woodbury Series and Bob Moses Algebra Project. Approximately 528 teachers and 30 schools will participate in this project.